Improving a Microscopy Course: Integrating Electron Microscopy with Scanning Probe Microscopy

Physics (13) With its capability of visualization and manipulation at atomic and molecular
levels, scanning probe microscopy (SPM) has become one of the most important
advancements in science and technology in the past decade. This project is adapting and integrating
SPM into a two-semester Electron Microscopy (EM) course that has been taught at the
University of Missouri-Kansas City (UMKC). The addition of SPM instrumentation to
the course gives students a broader view and experience on the cutting edge
microscopy technologies. The integration also allows a more efficient approach in
teaching the subject, because the course covers a wider range of techniques used in
microscopy and emphasizes the application of these techniques in various fields. The
improvement of the course is being achieved by introducing, in addition to the existing
hands-on experiments on EM, two verification-type experiments using SPM to visualize
atomic structures on well-defined crystalline surfaces in the first semester. This is
followed, in the second semester, by three inquiry-based experiments that involve both
SPM and EM. The improved course enhances the interdisciplinary education
in science, mathematics, engineering and technology at UMKC.